Collaborative Research: Hyperspherical Hidden Crossing Method Applied to Positron-Alkali and Positron-Hydrogen Collisions at Low Energies

The proposed project is an application of the hyperspherical hidden crossing method
(HHCM) to positron-atom scattering. Positron-alkali collisions will be investigated in
the energy range where there are two open channels, elastic scattering and positronium
formation. For positron-hydrogen collisions, the plan is to extend previous two-channel
calculations to include excitation to the n=2 states of hydrogen. The objective of this
investigation is to provide insight into the dynamics of three charged particles which is
basic to the understanding of the dynamics of atomic collisions.
The HHCM is well suited for the study of collisions involving three charged particles of
arbitrary mass. An important feature that the HHCM method shares with the hyperspherical
method is that it treats excitation and the rearrangement process on equal footing.
This is important for positronium formation in positron-atom collisions.